Mathematical Sciences: Singular Integral Operators, Decompostions of Function Spaces Related to Wavelets, and Boundary Elements in Nonsmooth Domains

9303363 Torres Work done on this project will develop wavelet type decompositions for the study of spectral and continuity properties of operators. In particular, pseudodifferential operators with rough symbols will be considered. The analysis of the operators will be carried out through the construction of molecules whose smoothness matches that of the symbols of the operators. Similar decompositions for parabolic spaces will be constructed and used to study operators whose kernels have non- isotropic singularities. Previous work on discrete spaces and multiplier operators will be developed further. Work will also be done on boundary element methods in nonsmooth domains. Singular integral and layer potential techniques will be employed. The problems to be considered include the construction of Galerkin procedures for the traction boundary value problem from elastostatics and for moving boundary problems in unstable solidification. To aid in applications of this research, efforts will be made to confine the function spaces to those that permit efficient numerical implementation. For this purpose, the latest developments on the method of layer potentials in Holder spaces and decomposition techniques for spaces of homogeneous type will be incorporated into the project. The application of wavelet analysis to singular integral operators has led to new insights into the continuity properties of these transformations. In addition, the very discrete nature of the wavelet decompositions allows for unexpected accuracy in their numerical approximation. The second part of the research on boundary element methods continues efforts to understand the degree by which mathematical treatment of differential equations may be carried out in the absence of standard smoothness assumptions. These assumptions often do not reflect conditions present in problems describing phenomena taken from the physical world. ***